Set Theory: Combinatorics and Large Cardinals

This project will primarily involve work in two areas. Mitchell has
recently answered a longstanding question of Shelah concerning the
approachability ideal at the second uncountable cardinal, and the
first area of research will further exploit these new techniques to better
understand this ideal and other questions about closed unbounded
sets. A major aim will be to extend these ideas to the successor of
a singular cardinal. The second area of research is in inner model
theory, where Mitchell will attempt to better understand the situation
just below a Woodin cardinal and at very large cardinals where no
core model is presently known to exist.

These questions concern the basic structure of the universe of sets.
The approachability ideal was defined by Shelah for use in his analysis of
singular cardinals, such as the first infinite cardinal number which
has infinitely many smaller infinite cardinals below it. The structure at
such cardinals is much more difficult than the structure at regular cardinals,
and the planned research could contribute significantly to its
understanding.
Much research in set theory studies different the different possible
forms that the universe of sets might take. It has been shown that, under appropriate
assumptions, the "core model" provides an invariant skeleton which shared by all of these
possible universes, and from which they derive much of their
structure. The work on inner models will aim at an understanding of
exceptional cases where this skeleton is not yet know to exist.